Enhancing Elementary Science

Community School District 4 has designed the Elementary Science Enhancement Project to address the issue of effective science instruction that meets the State mandate. The purpose of this project is to enhance the quality of science teaching and thus the increased awareness and preparation of under represented elementary students in East Harlem. The project will, over three years impact upon 30 supervisors, 500 teachers and 12,000 students. In New York this comes at a time when the State Education Department is introducing a new elementary science syllabus requiring enhanced teacher competence and "hands-on" involvement in science instruction. The immediacy and extent of need suggests an intervention model that operates at the level of direct instruction (the school district); that is organized to meet the in-service needs of current professional; that institutionalizes a system of peer support, turnkey training and supervisory involvement in every school; that develops a cadre of elementary science instructors/trainers for long term effectiveness; and that provides up- to-date information and materials, drawing upon the support and expertise of educational publishers, private industry, curriculum authors, scientists and science educators. The project has a three-year plan in which teachers leaders are trained along with building level supervisors in order to provide on-going elementary science staff development and collaboration on a district-wide basis. The strategies formulated by this project will be shared with the 31 other school districts in New York City as a viable model for the implementation of the new science syllabus. The expertise developed in staff development will be a valuable resource for New York City schools as well as the 700 other school districts throughout New York State.